Epitaxy, Surface Relaxation and Structural Methods

The project aims at the understanding of solid surface properties and their ability to support growth of epitaxial films or formation of alloys. The central piece of information sought is the atomic structure, in particular, the difference between the atomic arrangements in several layers on a surface and those expected in a truncated bulk. This difference, called surface relaxation or surface reconstruction, is a fundamental property of solid surfaces and is investigated both experimentally and theoretically. At the same time, the ability of a surface to sustain growth of another phase or another metal is tested. This growth may proceed by producing strained atomic layers clamped to the substrate structure and has therefore interesting links to technology and fundamental theory because both new bulk and new surface phases can be produced. The new phases include metastable phases and magnetic phases, as well as the formation of surface alloys. One goal of the project is to determine the atomic and electronic structure of the epitaxial films or surface alloys grown. In addition, attempts are being made to shorten the calculations that are necessary in order to determine a surface structure by means of analysis of low-energy electron diffraction intensities.